Evolution in Everyday Life: Theory, Evidence, and Social Influences

The ultimate goal of the project proposed here is the delivery of a biology curriculum directed towards students in their roles as laypersons. It will integrate domain content with a consideration of the social and personal issues that arise in the course of learning about evolution. Students will investigate empirical controversies that impact everyday life and related ethical dilemmas. They will learn to go beyond media accounts to determine what information they need to make a sound decision, how to collect this information, and how to use it to make decisions and communicate effectively. Assessments will allow us to examine basic cognitive and social processes that underlie their reasoning, as well as determine the practical effectiveness of the curriculum.